Conference: International Young Scientist Symposium on Catalytic Biomass Conversion in Dalian, China, July 11-13, 2017

PI: Sievers, Carsten
Proposal ID: 1703909

The award provides travel expenses for U.S. researchers to attend the International Young Scientist Symposium on Catalytic Biomass Conversion (IYCBC) that will be held at the Dalian Institute of Chemical Physics (DICP), Chinese Academy of Sciences, China, on July 11-13, 2017. The symposium will provide the U.S. researchers the opportunity to share research experiences in the biomass conversion area with peers from Europe and Asia, thus ensuring continued worldwide competitiveness of U.S. catalytic science and technology in biomass conversion to fuels and chemicals.

The IYCBC will include topics like preparation and characterization of novel catalyst materials, conversion of cellulose and lignin model compounds, design of catalysts and processes, and life-cycle analysis and carbon footprint tracking for biomass-derived chemicals. The U.S. researchers will be exposed to the different biomass research and technology practices of their European and Asian counterparts in an environment that will promote long term collaboration. Such international collaborations are vital for finding sustainable solutions for the production of fuels and chemicals via catalytic approaches that have minimal impact on the environment.